Postdoctoral Fellowship: MSPRF: Data-Efficient and Uncertainty-Aware Operator Learning Beyond Function Spaces

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Nicholas Nelsen is “Data-Efficient and Uncertainty-Aware Operator Learning Beyond Function Spaces”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Philippe Rigollet.